Research Starter Grant

A major part of understanding the proteome, the entire array of proteins produced by a cell or organism, is understanding how proteins interact with each other and the structure of that interaction. Much of the information about this is in literature and not easy to search or follow. A categorization of known information about protein interactions will be compiled and put into a web-accessible, user-friendly database. The database structure will reflect the biology of the proteins involved. The series of students are involved in producing the raw data and in formatting the database. The data, accessible to the general public, will be of particular use to researchers investigating protein interactions and structures.